Presidential Awards For Excellence In Science, Mathematics, & Engineering Mentoring

For more than 20 years, Dr. Guthrie has distinguished herself as a Chemistry Professor and mentor of K-12 students. Her accomplishments include the establishment in 1986 of the Greensboro Area Mathematics and Science Education Center. The Center's pre-college component serves 450 7th through 12th grade students annually through a school-based academic enrichment program; a Saturday Academy in the sciences and mathematics for minority youth; mentored research experiences during summer; and, a parental involvement program. Ninety-seven percent of the pre-college program graduates have matriculated to college and 75% percent have majored in science, mathematics or engineering. Dr. Guthrie also coordinated the North Carolina State Science Fair for fourteen years. She is presently a member of the faculty at North Carolina A&T State University.